Undergraduate Laboratory in Composites Manufacture and Testing

The objective of this project is to significantly upgrade the laboratory experience of engineering undergraduates in the area of composites manufacture and testing. The core of the Composites Engineering Multidisciplinary Certificate Program is a four course sequence culminating with the integrating, hands- on experience of the laboratory course. The equipment provides students experience in three crucial technologies used in industry. A resin transfer molding experiment allows students to study reaction kinetics and the effect of flow dynamics on final part quality. The multi-axis, computer-controlled filament winding machine allows the students to design, analyze, and fabricate complex parts in a paperless, automated environment. An upgrade to an ultrasonic testing device, consisting of a computerized data acquisition and analysis system, allows the students to more accurately detect flaws in the parts that they have fabricated during the term. The laboratory provides a quality, state-of-the-art experience for approximately 200 students. Implementation has a substantial long-term effect on the students' laboratory experience and better equips them to assume leadership roles in the field of advanced materials design and manufacturing.